U.S.-Chile: Scientific Basis for Modeling Snow Distributionand Melt in Alpine Catchments of the Chilean Andes

9404728 Bales This Americas Program award will support a collaborative research project between Dr. Roger Bales, University of Arizona, and Dr. Fernando A. Escobar, Direccion General de Aguas, Chile. The goal of the research is to understand the linkages between the processes controlling snow accumulation and melt in alpine catchments of the Chilean Andes. This understanding is critical to developing a predictive ability to describe the response of a basin to inputs of water and energy, and to changes in this input. A spatially distributed energy-`alance model of snowmelt runoff will be developed and will be evaluated for its forecasting capabilities and its sensitivity to parameters and data errors. Seasonally snow-covered areas of the Earth's mountain ranges are important components of the global hydrologic cycle and are sensitive indicators of climatic change. Snowmelt runoff in these areas accounts for the major source of the runoff for stream flow and ground-water recharge over wide areas of the mid-latitudes. It is therefore important to understand the processes controlling this runoff in order to model stream flow for water supply and flood prediction purposes. A long-term result of this project will be the firm establishment of cooperation between the two research teams and the incorporation of Andean basins to system of study sites located around the globe. ***